Collaborative Research: Caterpillars and Parasitoids in the Eastern Andes of Ecuador.

Plants, caterpillars, and parasitic wasps and flies that attack caterpillars (parasitoids) are important components of most terrestrial ecosystems and represent more than 20% of all described organisms in the world. “Caterpillars and parasitoids in the Eastern Andes of Ecuador” is an intensive plant, caterpillar, and parasitoid inventory at the Yanayacu Biological Station (YBS) in the Ecuadorian Andes. The primary objectives of the project are to collect and catalog the diverse community of caterpillars and associated parasitoids at this site, to discover new species, to characterize diversity of the region, and to disseminate this information with a searchable database accessible to scientists and the public throughout the world.

The intellectual merit of the proposed activity includes significant advances in insect classification as well as providing a critical inventory that can be used in conservation efforts in the equatorial Andes, a global hotspot of biodiversity. The data will also be used to address a variety of basic and applied questions, particularly those associated with climate change and biodiversity. The broader impacts of this project include direct involvement of four local field assistants, three Ecuadorian students, three Ecuadorian senior scientists, one postdoctoral researcher, at least twelve collaborating insect specialists, and various graduate and undergraduate students. The project will also include enhancements in science education and research experience programs for minorities.